Conference on Econometrics and Mathematical Economics, 1990-1991, Cambridge, Massachusetts

This grant continues the seminar program of the Conference on Econometrics and Mathematical Economics (CEME). The purpose of this conference series is to stimulate discussion and research on the frontiers of econometric and mathematical economic theory and methodology. CEME also encourages the application of advanced mathematical, statistical, and numerical analysis techniques in empirical economic studies. The conference shortens the time lags between the conception of ideas and their dissemination by inducing leading scholars to cooperatively apply their talents to selected, unresolved issues which they feel are currently receiving inadequate attention. This conference series continues to make significant contributions to economic theory and econometrics. Since its inception in 1970, seminar groups have produced more than 700 working papers and have published many books and numerous articles in professional journals. A total of 190 meetings have been held involving more than 800 scholars. Currently there are active seminars on general equilibrium models, comparisons of econometric models, applied general equilibrium workshops, time series analysis, Bayesian inference in econometrics, decentralized economic planning, and stochastic analysis. In addition CEME publishes a "Call for Conference Proposals" annually as a mechanism for co-funding small conferences in the area of econometrics. A new seminar group in financial market theory and analysis will begin meeting in early 1990.